(SGER) Magnetic Collection of Colloidal Materials from Groundwater

9713205 Johnson Colloidal materials are thought to mediate the partitioning, transport, and bioavailability of contaminants. However, field data on colloid-mediated contaminant behavior is highly limited due to the inability to separate colloids from environmental waters without significant loss of associated contaminants to the separation apparatus. Modified ferrographic techniques involving the addition of erbium to impart magnetic susceptibility to non-paramagnetic particles have been developed and used for collection of bacteria from laboratory solutions. It is proposed to apply modified ferrographic techniques to aqueous environmental samples, to allow collection and analysis of colloidal phases and their associated contaminants.